Mathematical Sciences: Dependence of the Dynamics on the Delay for Delay-Differential and Delay-Partial Differential Equations

9409854 Hines The research entails the study of dissipative systems admitting global attractors along with some questions concerning population dynamics. Central to these topics will be the analysis of certain kinds of differential delay equations of both ordinary and partial type as optimal models. ***